Acquisition of an FTIR Spectrometer

A Fourier Transform Infrared Spectrometer (FTIR) will be acquired for use in chemical and biochemical projects. Among the projects to be supported are studies on (1) enzyme mechanisms; (2) mechanistic studies of chemical oscillators; (3) conformational analysis of proteins and vibrational circular dichroism; (4) solid state polymerization of acetylene; (5) light induced proton transfer in bacteriorhodopsin; (6) development of organic and organometallic synthetic methodology and natural product syntheses; (7) model studies of enzymatic nitrite and sulfite reduction. The FTIR Spectrometer will also contribute to a broad range of other structural and functional studies in chemistry and biochemistry.